U.S.-Venezuela Cooperative Research: Taxonomic and Life History Studies of Venezuelan Ascomycetes

This U.S.-Venezuela award will support a research collaboration between Professor Richard Hanlin of the University of Georgia and Professor Omar Tortolero of the Universidad Central de Venezuela in Maracay, Venezuela. The purpose of the research is to collect, identify and study Venezuelan ascomycetes, with emphasis on plant pathogenic species. The ascomycetes comprise a major component of the fungal flora in tropical countries. Many of them grow parasitically on plants, and some cause serious diseases of economically important crops. Many of the plant pathogenic ascomycetes in the tropics, however, are poorly understood biologically, and even their exact identification is often uncertain. By combining the expertise of a Venezuelan plant pathologist acquainted with numerous plant diseases caused by tropical ascomycetes, with one of the world's leading ascomycetes researchers, this project will increase our understanding of this important family of fungi.